Surface and Inorganic Chemistry of Compound Semiconductor Materials

This award is made in the Materials Chemistry and Chemical Processing Initiative in support of the collaborative research of Professors Cowley, Jones, Ekerdt and White at the University of Texas/Austin. Joint funding is provided by the Divisions of Chemistry, Materials Research, and Chemical and Thermal Systems. The principal objective is to achieve precise control of the physical and electronic properties of epitaxially grown semiconductor thin films through the rational design and chemical synthesis of single-source precursors. Novel single-source precursors will be prepared and their structures and stabilities determined. Thin films will be grown by chemical beam epitaxy and the adsorption, decomposition and surface desorption kinetics of the precursors will be studied by advanced surface science techniques. The relationship between precursor structure, surface reactions and materials properties will be explored in order to develop an atomistic description of how the precursors react at the interface and how film growth progresses.